Integrable Geometry, Random Matrices and Matrix Integrals

Abstract

Award: DMS-0406287
Principal Investigator: Mark Adler

The project aims at investigating various connections between
random matrix theory, various statistical processes,integrable
mechanics and the Virasoro algebra Specifically,one project is to
study non-colliding Brownian motion a la Dyson,on the line and on
the circle,including the Dyson elliptic Brownian motion;the
connection with matrix models in a chain is particularly relevant
to finding PDE's for the joint probabilities of the motion.Using
scaling limits arising in the context of random matrices and
permutations,the Dyson motions above tend to novel limiting
random processes.The motion of the outmost particle tends to the
so-called Airy process.Finding stochastic differential equations
for these processes hinges on intricate statistical questions
about the universality laws appearing in random matrix
theory.Another project is to find large time asymptotics,like
asymptotic covariances,for the Dyson processes and the limiting
processes as well.The investigators believe that each of the
universality laws in random matrix theory connects with an
integrable system and the algebra of Virasoro constraints.The
problem is to find these sysems and to extract interesting
information about the distribution functions and their
differential equations.Finally,the Dyson circular motion has an
interesting realization in terms of the "Stochastic Loewner
equation",providing a conformal map realization of this
motion.Its Ito stochastic differential equation is related-in a
mysterious way-to the Virasoro algebra,which also naturally comes
up in questions of non-colliding random walks and the
Fokker-Planck equations.These connections will be investigated.

The mathematical physics above has applications in the
statistiical analysis that comes up in many practical problems
involving a small number of sources ,each generating lots of
data,like antennas receiving information,analyzing ecological
data from a small number of sources ,each generating lots of
data,etc.The point being that in many practical problems large
rectangular arrays of data come up,which are big in one
direction,but not the other.The statistical processes that come
up also seem to come up in lots of growth models that should be
relevant in industrial processes.In addition the universality
laws that arise in the random matrix theory arise quite naturally
in quantum mechanics,in studying large atoms and so may prove
useful in understanding chemical reactions in physical chemistry
and hence in manufacturing drugs through simulation experiments
one day.